Workshop on Modeling the Rapid Evolution of Infectious Diseases

The objective of the workshop is focus on the evolution and transmission
of pathogenic microbes in models of infectious diseases. Because
pathogenic agents may evolve rapidly, have varied mechanisms of
transmission, and involve complex treatment strategies, researchers from a
variety of fields are necessary to understand and control infectious
diseases. The contributions of researchers in mathematical models of
epidemics is important in this effort. This workshop provides a forum for
leading researchers in the subject of mathematical models of epidemics to
exchange ideas, explore new methods, and discuss future directions with
experts in epidemiology and public health. The workshop greatly benefits
researchers and their graduate students at universities in Canada and the
United States.

In recent years mathematical models have been widely used to study
emerging infectious diseases. Infectious diseases are a vital concern to
society, and mathematical modeling allows the design of epidemic control
strategies and the development of effective vaccines. Mathematical
insights also help in understanding and predicting the emergence of
antibiotic and antiviral drug resistance, and suggest new therapeutic
strategies to better address these important public health concerns. The
outbreak of SARS in Asia and Canada in 2003, the increasing number of AIDS
cases worldwide, and the recent resurgence of tuberculosis in Canada and
the United States all demonstrate the urgency and importance of this
research.